The Seventh International Conference on Electronic Properties of Two Dimensional Systems - Santa Fe, N.M., July 27-31, 1987

The emphasis of EP2DS-VII will be on fundamental effects in two- dimensional systems. Participants in this conference will be expected to make important contributions to the progress of physics with emphasis on the development of applications and diagnosis of problems of solid state devices, both electronic and optoelectronic.